Functional and Molecular Analysis of Brick Genes in Maize

During development, cells acquire a wide variety of shapes that are
>tailored to their differentiated functions. The shape of a plant cell is
>dictated by the wall that surrounds it, a complex and highly structured
>matrix of carbohydrates, proteins, phenolic compounds, and lipids. The
>pattern in which a wall expands as that cell enlarges depends upon its
>composition and structure, which in turn is controlled by the cell within.
>The work described in this proposal is aimed at furthering our
>understanding of mechanisms governing plant cell morphogenesis.
> Mutations in three maize genes required for leaf epidermal cell
>morphogenesis have been isolated. In all of these "brick" mutants,
>epidermal cells expand to achieve a normal size and overall rectangular
>shape, but are completely lacking the marginal lobes characteristic of leaf
>blade epidermal cells. Preliminary studies of brk mutant phenotypes have
>led to two alternative hypotheses for Brk gene function. The first is that
>Brk genes promote intracellular asymmetries, which direct non-uniform
>patterns of deposition/secretion of wall components, producing specialized
>epidermal cell shapes. The second is that Brk genes are required for the
>synthesis of particular wall components needed to achieve non-uniform
>patterns of cell expansion. In the experiments proposed under Specific Aim
>1, these hypotheses are explored through further characterization of
>intracellular and extracellular events associated with the formation of
>epidermal cell lobes, and how these events are altered in each of the 3 brk
>mutants. Specific Aim 2 is to use genetic mosaic analysis to determine
>whether each gene functions cell autonomously or non-autonomously to
>control cell shape. To pursue an understanding of Brk gene function in
>molecular terms, Specific Aim 3 is to clone one of the Brk genes using
>transposon tagging. Subsequent to cloning one of the Brk genes, the amino
>acid sequence of its predicted protein product will be determined and
>analyzed for homology to other proteins or protein motifs, and the
>expression of this gene will be examined to determine how it relates to
>epidermal cell morphogenesis.